Mathematical Sciences: RUI: Research on Operators in Hilbert Space

9400566 Fialkow The project involves work on several projects concerning operators on Hilbert spaces. These problems involve the following topics: joint hyponormality, especially k-hyponormality and weak k-hyponormality for weighted shifts; related problems in the theory of moments, including the complex truncated moment problem; majorization, factorization and invertible factor theorems in the theory of C*-algebras. One aspect of this research concerns structural and computational models for subnormal, k-hyponormal, and weakly k-hyponormal operators, with emphasis on unilateral shifts. This study also concerns multidimensional power moment problems, including the truncated complex moment problem and the extension problem for positive moment matrices. Another facet of this research concerns the description of the spectral picture of an elementary operator acting on a prime C*-algebra. This research also concerns solubility of the equation a = bx in a C*-algebra, including the case of solubility with x invertible. Operator theory is an infinite dimensional version of linear algebra and matrix theory. One of the important applications of linear algebra is in solving a system of a finite number of linear equations. The problem of solving operator equations can be considered as an attempt to solve a system involving a very large or infinite number of equations. Part of this project involves solving operator equations. Other portions of the project involves using operator theory to solve classical moment problems. The basic problem here is to determine a measure or mass distribution from various moments of mass. It is important to note that this research will be conducted at an undergraduate institution and will have significant impact in mathematics education. ***